Computer Simulation of Tephra Fallout from Volcanic Eruptions

A new theoretical model has been developed to analyze laboratory experiments and field measurements of fallout from volcanic eruption plumes. The model is based on the sedimentation from lateral gravity currents which develop at the top of plumes in stratified environments. It allows for the prediction of fallout patterns from plumes such as volcanic eruptions or black smoker vents. This project seeks to develop a general model of volcanic ash fallout from explosive eruptions which utilizes this new theory. A major task of the work will be to develop a computer model which can incorporate the effect of wind transport with the theoretical sedimentation relationship. It will involve collaboration with British scientists who have been concerned with this problem.